Partial Support for Travel of American Scientists to the Fifth International Congress of Plant Pathology in Kyoto, Japan, August 20-27, 1988

Partial support is provided to the American Phytopathological Society in order for plant pathologists and scientists in related fields from the United States to travel to Kyoto, Japan in order to participate in the Fifth International Congress of Plant Pathology to be held on August 20-27, 1988. This international meeting has been scheduled at five year intervals and this Congress will be the fifth one that is devoted exclusively to this area of science. The amount of travel support, $20,000, is based on the number of American plant pathologists involved in planning the program and invited to participate, the number who have indicated that they are planning to participate if funding is available and an estimate of the financial support required to enable this country to be represented properly at this important Congress. The Society will assume responsibility for meeting at which it is critical to have appropriate participation by U.S. scientists as many other countries also have strong research interests in these aspects of plant biology. The principal investigator, Dr. Kelman, is a highly regarded plant biologist and the Society has a proven track record in managing an international travel award effort.